Petrologic and Stable Isotopic Study of the Release, Transport, and Deposition of CO2 During Regional Metamorphism

9706638 Ague Tectonometamorphic processes during orogenic pulses can influence the CO2 budgets of the atmosphere and hydrosphere, and produce global climatic change. Processes include: (1) release of CO2 by metamorphic decarbonation and (2) sequestering of CO2 by rapid underthrusting and burial of carbonate-rich terranes. The PIs will investigate processes of decarbonation attending prograde infiltration of metamorphic and magmatic fluids and carbonate deposition in carbonate-bearing veins. Field area is the Orange-Milford belt in Connecticut. The nature, degree and length scales of mass transfer of H2O, CO2 and chemical elements and O, C, H and S isotopes will be determined by mapping chemical and isotopic fronts across lithologic contacts and evaluating net transfer and mass balance. PIs will investigate: (1) oxygen isotope zonations in in porphyroblasts, (2) porphyroblast growth reatlive to isotopic fron propagation, (3) isotpoic systemmatic of mineral in clusions in porphyroblasts, (4) cross-cutting relatios betweenn vien sets and prophyroblasts, (5) timing of mass transfer relative to folding and cleavage development, and (6) sedimentary/diagentic/low-grade effects in order to distinguish them from higher-grade phenomena. Geochemical modeling of fluid-rock interactions as a function of P, T and wallrock type will constrain the processes and efficiency of carbonation/decarbonation.